Exchange Rates and Open-Economy Macroeconomics

This research will formulate quantitative models that integrate equilibrium models of exchange rates -- based on real disturbances in dynamic, stochastic, general-equilibrium models with flexible prices -- with real business cycle models -- dynamic stochastic models of the effects of real disturbances on macroeconomic aggregates. It will involve the use of numerical methods to solve models with parameters taken from historical data and microeconomic studies, and to determine the properties of these models, their sensitivity to parameter values, and their implications. The research will also study the use of nonlinear statistical representations of exogenous disturbances. The results will improve our understanding of the effects of real disturbances on exchange rates, add new testable implications of dynamic general-equilibrium macroeconomic models for open- economy variables such as the trade balance, terms of trade, and relative price of non-traded goods, add to our knowledge of the international transmission of exogenous disturbances and of government policies, especially fiscal and international-trade policies, and improve our understanding of the roles of sector- specific versus nation-specific disturbances in aggregate fluctuations and of the effects of alternative exchange-rate systems on macroeconomic and international-trade performance.